Purchase of a Squid Magnetometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at North Carolina State University will acquire a a Superconducting Quantum Interface Device (SQUID) magnetometer. This equipment will enable researchers to carry out studies on a) synthesis and characterization of open-shell molecules and materials; b) crystalline and liquid crystalline metal halides; c) magnetic susceptibility in metalloproteins; and d) development of novel contrast agents for magnetic resonance imaging.

A SQUID magnetometer is critical for studying the magnetic properties of materials, particularly for weakly magnetic/small moment samples. In a DC magnetization measurement, one measures the magnetic moment as a function of applied DC magnetic field (and/or temperature). Using DC magnetization experiments, one can determine magnetic moments or a hysteresis curve, or identify magnetic phase transitions. In such a fashion, complete magnetic characterization of single crystal samples and films is possible. These types of measurements are essential in order to understand polymers and thin films.